Resource Teachers for Microcomputer-Based Laboratories in Middle Level Science

This 2 1/2 year project is designed to develop 40 highly trained resource teachers in applications of microcomputers- based laboratories (MBL) for middle level science. These resource teachers will then be available in the long term to train other science teachers in the use of the technology. In addition, some 6000 middle level science students will benefit by having MBL experiences as part of their science programs. Some unique features of this project are that "1) Resource teachers will be trained both in formal university workshops and on site in their schools through peer coaching; 2) A new set of MBL activities will be developed to capitalize on existing commercial MBL software and hardware; 3) A strong evaluation component will monitor both the degree of implementation of MBL and its effectiveness; 4) A new MBL- focused course will be created for a permanent offering at SDSU; 5) the project will serve a population the majority of which consists of students from historically underrepresented groups; and, 6) A permanent MBL clearinghouse will be maintained as a regional and national repository of MBL science learning activities, to provide a directory of trained MBL workshop presenters, to run an electronic bulletin board for networking interested teachers, and to generally promote the use of computer applications in regional schools. An amount equivalent to 22.3% of the NSF award is being contributed by San Diego State University as cost-sharing.